Heirarchical Modeling of Incompressible Turbulent Flows Using Divergence-Free Vector Wavelets

Abstract CTS-9613948 John Lumley et al Cornell University A wavelet representation of incompressible turbulent flows using divergence-free vector wavelets will be developed. Better results than Fourier representations are expected because the coherent structures in turbulent flows have a limited spatial extend similar to wavelet. The Galerkin projection of the Navier-Stokes equations on a divergence-free vector wavelet orthogonal basis, and its incorporation and comparison to the Proper Orthogonal Decomposition (POD) approach, will be also investigated. Comparisons to detailed two-dimensional Particle Image Velocimetry measurements in air performed at NASA Langley Research Center will be performed in order to evaluate the capabilities and efficiency of the wavelet decomposition. The research work will be performed in collaboration with Oxford University in UK and Clarkson University. If successful, the wavelet representation will offer a fundamentally new way to describe and analyze non-uniform flows such as large turbulent structures.